Topology and Applications

Abstract

Award: DMS-0705159
Principal Investigator: Nitya Kitchloo

This proposal emphasizes three concrete projects. The aim in the
first project is to give a topological interpretation to the
class of highest weight representations of infinite dimensional
Kac-Moody groups. The PI plans to construct a variant of equivariant
K-theory on the category of spaces that admit a proper action of
a Kac-Moody group. In particular, one hopes to relate the class of
highest weight representations with elements in this
K-theory. This project will generalize recent work of
Freed-Hopkins-Teleman. The authors cited gave a topological
interpretation of the positive energy representations of Loop
groups. This is a special case of an affine Kac-Moody group.
This research program will study more general Kac-Moody groups.
The goal of the next project is to understand the topology of the
space of compatible complex structures on a symplectic
4-manifold. This builds on an earlier joint project of mine where
we showed that for rational ruled surfaces with arbitrary
symplectic forms, the space of compatible complex structures is
weakly contractible. In that project, we use a comparison
technique that relates the space of complex structures with the
space of almost complex structures, and decompose the latter
using the theory of J-holomorphic curves. In the proposed
project, we will attempt to apply our techniques to other
4-dimensional symplectic manifolds. As a by product of our
techniques, we hope to derive consequences about the group of
symplectomorphisms of 4-dimensional manifolds. In the final
project, we study a new cohomology theory called real
Johnson-Wilson theory, and develop computational tools to make it
accessible. Real Johnson-Wilson theory is constructed by taking
fixed points with respect to an involution on standard
Johnson-Wilson theory. These are 2-local theories indexed over
the integers, with the first theory being 2-localized real
K-theory. We plan to use our tools, along with techniques in
Algebraic Topology, to settle various old questions regarding
immersions of real projective spaces in euclidean
space. Previously, the best know results used the theory TMF
(Topological Modular forms).

The general focus of my projects is to explore the interaction
between geometry and topology. The objects of study in geometry
are fundamental physical objects (in possibly more than three
dimensions), that are endowed with various structure. The
structure one associates to these spaces could be as crude as the
homotopy type (the information about the space that is preserved
under all continuous deformations), or one may be interested in
more subtle structure like the differential structure (the local
information about the space that makes it smooth). One may refine
the smooth structure even further and study symplectic, or
complex structure. These questions are motivated by fundamental
inquiries into our physical universe. Indeed, mathematical
physics is a rich source of questions and ideas. Given a
particular structure of interest, one may ask the question of how
to enumerate them. In other words, one is interested in ways to
parametrize all possible structures on a space. For example, John
Milnor was the first person to really show that spheres admit
multiple non-equivalent smooth structures, starting with the
7-dimensional sphere which admits 28 such structures. One of my
projects is to study the question that inquires into the number
of complex structures in 4-dimensional smooth spaces. The
techniques that one uses to understand the space of complex
structures is to decompose it into pieces that have some
significance in terms of their symmetry. Then one studies these
pieces using the invariants of topology and then reassembles
these pieces to get a coherent picture on the global level. The
question of symmetry is also important in other projects that I
propose. For example, the linear symmetries of a vector space
(like euclidean space), which preserve some property, are known
as representations. Another project aims to study a class of such
representations that act on infinite dimensional vector
spaces. We will try to encode these objects via a topological
invariant known as equivariant K-theory. Such invariants are
generally known as cohomology theories and form natural
receptacles for algebraic information derived from geometry. In a
third and final project, the PI plans to develop such a
cohomology theory, called real Johnson-Wilson theory. We hope to
justify its importance by showing that it helps to solve an old
geometric question about the minimum dimension of euclidean space
where a certain class of spaces, known as real projective spaces,
may be realized.